Novel Fluorescent Probes of Intracellular Ca2+ Signaling

9305555 Kao The goal of this research is to design and synthesize a novel class of fluorescent calcium indicators. The approach entails the use of a fura-2 type indicator bearing a chemically reactive linker. Covalent conjugation of such a reactive indicator to proteins and peptides that contain targeting sequence information and injecting the resulting conjugates into cells would allow the fluorescent indicator moiety to be spatially targeted to subcellular domains or organelles. Based on this targeting approach, four separate projects are proposed: 1) To devise an indicator linked to an N-terminal myristoylated oligopeptide containing the targeting sequence that allows p60src to bind specifically to its receptor in the plasma membrane. Such an indicator will, for the first time, permit one to examine how a cell regulates calcium signals in a microenvironment very near the cytoplasmic face of the plasma membrane. 2) To construct an indicator covalently linked to an oligopeptide incorporating the nuclear localization sequence of the SV40 large T antigen. The peptide-indicator conjugate is, in turn, conjugated to bovine serum albumen (BSA). Microinjected BSA targeting peptide- indicator conjugate will be imported into the cell nucleus. Such a probe allows calcium regulation in the nucleus to be monitored specifically and independently of cytoplasmic processes. 3) To prepare an indicator attached covalently to calmodulin (CaM). Such a calmodulin-based fluorescent probe is expected to coassemble, along with native calmodulin, into various cellular structures. The calmodulin part of the probe thus serves as the vehicle for bringing a fluorescent calcium indicator into the immediate vicinity of cellular machinery that is specifically dependent on calcium/calmodulin for activation. 4) To explore the possibility of studying calcium regulation in plant cell chloroplasts by taking advantage of the post-translational import of essential chloroplast proteins. A fluorescent calcium indicator will be attached, via its reactive linker, to a precursor protein that contains a chloroplast transit peptide. Targeting of the indicator to the stromata of chloroplasts by way of the protein import machinery will be investigated. %%% Living cells respond to many types of chemical and environmental signals ranging from hormones and growth factors to light. The mechanisms by which these signals are detected and ultimately result in changes in cell structure or physiology is the subject of much research. One important internal messenger in signaling pathways is calcium. The goal of this research is to design and synthesize novel fluorescent dyes that can be targeted to specific cellular structures or compartments and there change their fluorescence properties in the presence of calcium. Thus, they will indicate localized changes in calcium concentration under different physiological conditions. The ultimate goal is to be able, literally, to see calcium changes as cells respond to specific signals. These indicators should provide invaluable probes to enhance understanding of cellular signal transduction mechanisms.***